Interactive Mathematics Teacher Preparation Project

9354776 Fisher This proposal articulates the development of a new undergraduate mathematics education program consisting of three new courses for undergraduate preservice secondary mathematics teachers and two new courses in developmental entry level mathematics based on proven secondary reform curriculum. The developmental courses are adaptations of the highly acclaimed reform secondary mathematics curriculum, the Interactive Mathematics Project (IMP). The preservice courses provide training in the philosophies, attitudes, objectives, and methods underlying the new reform curriculum and include specific training in the delivery of the adapted IMP materials. The preservice teachers participate in a highly structured field experience based on reform ideas as they actually teach (under the supervision of mathematics education faculty), the two new developmental courses to college students with entry level mathematics deficiencies. The project is conducted in two distinct settings: CSU, Chico (a typical four year institution that has remedial students and a teacher preparation program) and in a collaborative setting between the University of California, Irvine (a research institution with preservice teachers) and Irvine Valley College (a community college that has a large population of remedial students). Development of the curriculum, materials, and implementation design allows easy export to either higher educational setting throughout the nation. This innovative preservice-developmental proposal provides both an important advancement in aligning secondary mathematics teacher preparation programs with reform ideas and an economical solution to the growing bottleneck of students with entry level mathematics problems. ***y